Biomathematical Approaches to Cancer Research

Afenya
9973944
The investigator develops mathematical models of several
problems arising in biology and medicine. These include studies
of models of normal and cancerous cells considered as interacting
cell populations; investigations of normal and cancer cell
behavior in the bone marrow, blood, and the active and resting
phases of the cell cycle; studies of the inherent effects of time
lags in the development of the myelodysplastic syndromes (MDS)
and cancer; and studies of MDS and cancer from diffusion-oriented
viewpoints. The treatment of cancer and MDS is looked at as a
formal optimization problem. Various functions that represent
medical and financial costs to patients during treatment are
derived and minimized or maximized subject to constraining
ordinary differential equations. Following this, techniques are
developed for controlling model equations that involve partial
differential equations. Within this framework, optimal strategies
that address problems such as patient recuperation after
treatment, multidrug resistance, patient sensitivity to
anticancer agents, minimal residual disease, and low versus high
dose continuous infusions are considered. Statistical and
probabilistic methods are used to manipulate and study cancer
data. From the data, model parameters that describe cell growth
and death rates are estimated by employing concepts of the growth
fraction, cell cycle and flow cytometric measurements, and
apoptotic information. Techniques are also developed for
estimating other relevant model parameters, such as measures of
contact inhibition between cells, from data.
The objectives of the project include studies and modeling
of precancerous syndromes and disseminated cancers such as the
leukemias and lymphomas from a biomathematical viewpoint. The
focus is on: a) Construction of mathematical models that
quantitatively and qualitatively shed light on mechanisms
inherent in the precancerous syndromes and disseminated cancers;
b) Studies and comparisons of various treatment protocols through
the use of predictive treatment optimization models with the view
to suggesting ways in which treatment could be improved.
Biomedicine is becoming increasingly quantitative in scope and
content as the fight against all kinds of diseases such as cancer
continues. Nevertheless, the use of mathematical techniques that
are well suited for analyzing, synthesizing, and comprehending
such quantitative information are relatively limited in this
important area. Also, clinicians and medical practitioners are
always faced with problems such as the exact length of time to
carry out treatment, infusions of the right amounts of drugs that
are adequate for patient recovery, and overall patient safety.
These issues demand that the best treatment strategies be found
when dealing with patients in the clinic. The need also exists
for multidisciplinary approaches in tackling problems that
continually arise in the clinic. It is within these frameworks
that mathematical modeling in the area of biomedicine assumes
significance and importance. The mathematical models serve as a
first line of approach and a cost-effective way of gaining
insight into cancer and MDS without initially resorting to
expensive clinical trials. The predictive nature of the models
gives the clinician various options about the specific way to
proceed in dealing with the problems of the patient. It is
envisioned that knowledge gained from the research activities
will aid in the fight against cancer as a whole and have an
impact on clinical trails of new therapeutic strategies. Such
knowledge will also have a positive impact on drug delivery
systems and the area of biomedical technology.